Collaborative Research: MSB: Microbial control of litter decay at the cellulose-lignin interface

The key scientific significance of this work is the integration of microbial community and chemical interactions during the long-term degradation and stabilization of plant litter because there has not yet been a working synthesis of this knowledge expressed in a comprehensive quantitative framework. Plant litter decomposition is the main control on soil fertility and carbon (C) sequestration. There is growing interest in understanding the conditions under which soils gain or lose C, in part, because soils contain more C than the atmosphere and could play either a moderating or exacerbating role in global warming. An integrated field, laboratory, and modeling study of the biochemical mechanisms driving interactions between soil C sequestration, plant litter chemistry, and microbial community composition and activity during decomposition is needed to define these relationships. Moorhead and Sinsabaugh (2006) developed a new model that incorporates microbial dynamics into the decomposition process, the Guild Decomposition Model (GDM), which has generated a series of specific hypotheses about the mechanisms controlling the interactions between plant litter chemistry, C stabilization and microbial community composition and activity during decomposition. The proposed research will evaluate these hypotheses experimentally by monitoring changes in plant litter chemistry and microbial community composition and function during decomposition, with and without added N to mimic N deposition. Stable C isotope (13C) labeling will further determine the community composition of active microorganisms capable of metabolizing specific chemical components of plant litter. This research will provide mechanistic insight into the impacts on plant litter decomposition and soil C sequestration from N deposition, elevated CO2, plant community composition shifts, and climate change.

An integrated education and outreach program will complement this research, assisted by the University of Toledo's Center for Creative Instruction (CCI). For this project, the CCI will develop an online interactive Model Of Leaf Decomposition (iMold) to provide educational outreach about decomposition for grades 5-12. Visitors will be able to visualize the progress of the decomposition of litter as a whole, or different individual litter chemical constituents, along a time line to see how time, litter type, and environment relate to how quickly or slowly something decays. Teachers and students will be able to network between researchers and classrooms at other schools, enabling them to share data, ask questions, and collaborate on experiments. A communication center will be created so that the researchers and classrooms can share ideas and results, as well as ask questions in a blog-like environment. Additionally, this project will provide training for several undergraduate and graduate students. University of Toledo and Kent State University serve significant populations of underrepresented groups in science, and they will be recruited to this project.